Conference: Western Dynamical Systems Conference

This award supports participation in the first annual Western Dynamics Conference that will take place on May 8-10, 2026 at the University of Utah in Salt Lake City, Utah. The conference will focus on the recent developments in dynamical systems. The goal of the conference is to bring together the growing dynamics community across universities in the western United States and Canada. This meeting is designed to advance high-quality research in dynamical systems, strengthen scientific collaboration—particularly within the western United States—and broaden participation by engaging early-career researchers and students. By creating opportunities for interaction among mathematicians at different stages of their careers, the conference will help cultivate the next generation of researchers in the field.

The theory of dynamical systems provides important tools for the modeling, analysis, and prediction of complex phenomena across mathematics and the sciences. Addressing key challenges in the field increasingly requires ideas and methods from multiple areas of mathematics. The conference program highlights many areas of dynamical systems and its connections with other areas of mathematics, such as geometry, combinatorics, and number theory. The conference features talks by graduate students and early-career mathematicians, complemented by presentations from a selected group of leaders in the field. This combination will ensure that participants are exposed both to cutting-edge advances and to the diverse perspectives of the next generation of researchers. More information can be found on the workshop website https://www.math.utah.edu/wdc/